Alternative Algorithms for the Computation of Dynamic Equilibria

This is an important project which requests time on the Cornell supercomputer to study the relative computational efficiencies of parallel and serial processors in solving very large economic optimization problems. The supercomputer is becoming a very important research tool in economic analysis. Many economic models which are realistic from a behavioral standpoint are not computationally tractable on standard mainframe computers. They are, however, solvable with the aid of a supercomputer. This project develops efficient vector algorithms for the solution of large economic optimization models. Technically, the research models large-scale equilibrium economies as variational inequality problems. This general set of problems encompasses a wide variety of economic frameworks, such as oligopolistic markets, inventory and investment optimization for firms, allocation and management of non-renewable resources, and traffic networks. Professor Nagurney is an experienced researcher in the areas of mathematical programming and economic optimization.